Travel Support for the International SPIE Conference on Stellar Interferometry, Orlando, Florida; May 24-31, 2006

The award will support travel grants to the International Society of Optical Engineering symposium on "Astronomical Telescopes and Instrumentation," to be held May 24-31, 2006, in Orlando, Florida. The award will allow broader participation by students and postdoctoral researchers who would otherwise not be able to attend.